The Johns Hopkins Protein Folding Meeting: to be held March 15-18, 1997, Berkeley Springs, West Virginia

9603904 Amzel The 1997 Johns Hopkins Protein Folding Meeting will be held March 15-18, 1997 at the Coolfont Conference Center in Berkeley Springs, West Virginia . The meeting has an excellent choice of topics and session leaders. It includes four three-hour sessions of presented talks. The first such meeting was generally judged as excellent. Key features include the involvement of graduate students and postdocs, and the low-key atmosphere of the meeting. Protein folding is an area of active research that includes modeling, prediction of stability and prediction of structure. This meeting presents a balanced discussion of theory, prediction methods, computational methods and experiments. ***